Gravitational-Radiation Backreaction & Other Relativistic Effects in Compact Astrophysical Systems

9900767 - Mendell

Two of the most likely detectable sources of gravity waves are
oscillating neutron stars and black holes orbiting around each other In
order to study these waves and learn more about their sources, gravity
wave observatories are currently under construction around the world
This investigation will complete theoretical studies aimed at answering
the following important questions:
1. How does superfluidity and superconductivity believe to exist in
neutron stars affect the stability of these stars when they emit
gravity waves?
2. How does the emission of gravity waves affect the rotation rates of
these stars?
3. How will the theory developed here compare with neutron star rotation
rates as currently observed by radio telescopes?, and
4. What will new methods to be developed in this investigation tell us
about the inspiral of black hole binaries?

This work is of current interest and significance for several reasons.
Gravity waves carry to us the best information that can be obtained
about the strong gravitational field predictions of Einstein's General
Theory of Relativity. Their detection will provide insights into the
true nature of neutron stars and black holes. For example gravity waves
will be able to give the best direct evidence for the existence of
black holes. They should also provide key clues to determining the true
nature of the matter in neutron stars. This matter which is at several
times nuclear density cannot be studied in terrestrial laboratories.
One exciting prospect is that gravity waves might provide further
evidence that neutron stars really are superfluid and superconducting
inside. This would make neutron stars the highest temperature
superconductors in the universe However in order to extract the maximum
possible information from the gravity waves it will be necessary to
greatly improve the current understanding of the sources. Thus it is
imperative to the success of and the other gravity wave detectors that
the theory of the sources be worked out in detail. The investigation
described here will make major advances towards working out those
details.